SGER: NanoKids Educational Outreach Project--Proof of Concept

ABSTRACT

Proposal Number: CTS-0236281
Principal Investigator: Tour, James M. and McHale, Mary
Affiliation: Rice U
Title: SGER NanoKids Education Outreach Project-Proof of Concept

Ten different configurations of molecules resembling human stick figures have been synthesized in the PI's laboratory. The molecules as a group are dubbed the NanoKids. By portraying these molecules in a series of computer-animated lessons, the PI intends to develop a proof-of-concept support curriculum for introducing students in the 6-12 grade to the molecular environment. The longer vision is to develop extensive lessons based on the National Science and Technology Education standards. This SGER proposal is to obtain the funds for the proof-of-concept and to prepare for the upcoming submission of the full proposal.